Polarization Methods in Machine and Computer Vision

This project extends the unique capabilities of polarization- based visual sensing both in low-level machine vision and "higher-level" computer vision. The doctoral thesis written by the principle investigator has opened up a new subarea of vision research utilizing reflected polarization analysis as a new sensory medium for object feature extraction which has been demonstrated to have key advantages over existing intensity and color-based techniques for some important image understanding problems. Utilizing the fundamental foundations for these methods the research explores the development of a variety of polarization-based techniques for inspection processes in machine vision, and object recognition in computer vision. Reflected polarization analysis has provided the first practical methodology in vision for distinguishing and classifying material surfaces according to different levels of electrical conductivity, with metals and dielectrics at the extremes. For the more controlled environments of machine vision, polarization-based methods are studied that significantly improve upon existing methods for accurate non-destructive inspection of materials in terms of their composition and defects such as cracks and scratches. One potentially very useful application is to inspection of VLSI chips. The research will also study how material classification from polarization-based methods can be used in computer vision to augment object descriptions in terms of material composition of subparts for object recognition. Polarization-based methods can be very simply used to extract shape constraints; the project examines how this can be used for object recognition. Finally, the research explores the application of polarization-based methods to color constancy, for simultaneous determination of object and light source color.